Development of a Second-Generation Antarctic Muon and Neutrino Detector Array: AMANDA-Mark II

Abstract 9512578 Halzen This Academic Research Infrastructure (ARI) award provides funds for equipment to instrument approximately one cubic kilometer of ice at the South Pole Station to make the largest detector on Earth for energetic particles. An array of optical detectors will be buried more than a kilometer deep in the very clear ice to detect Cherenkov radiation from particles passing through the ice. The resulting Antarctic Muon And Neutrino Detector Array (AMANDA Mark 2) will have several scientific uses: most importantly it is expected to be the first detector capable of routinely measuring particles produced by energetic neutrinos from astrophysical sources. There are two ARI awards, one to the University of California, Irvine and one to the University of Wisconsin. Both universities have agreed, in accordance with ARI proposal requirements, to provide matching funds. The AMANDA project is a collaborative effort of the University of Wisconsin, the Universities of California at Irvine and Berkeley, the University of Stockholm, the University of Uppsala (both in Sweden) and DESY in Germany. ***